Research Initiation Award: Chemical Modification of Polyquinoline Structure for Characterization of Gas Transport Properties for Membrane Applications

CTS-9308526 University of Arkansas Maria R. Coleman ABSTRACT Chemical structure will be systematically varied in a series of polyquinolines in order to investigate relationships between molecular architecture and properties of polymeric films and membranes. Structural changes will modify intersegmental and intrasegmental resistances to chain mobility, the inhibitions to chain packing and the distribution of free volume. Physical and, particularly, gas transport properties of these rigid, high thermal resistance polymers will be measured. Polymeric films are important barrier materials in food packaging and in the microelectronics industries. Membranes are rapidly being developed and used in production facilities for fuels and in the separation of gases for hospitals and research institutes.